Mathematical Modeling Forum

This project is creating a web-based mathematical modeling forum to support the teaching and learning of mathematical modeling on a national scale. The forum provides a rich environment in which students and faculty can explore applications problems in depth, learning mathematics in the context of its contemporary use. Students are offered a wide variety of modeling problems coded by level of difficulty and application area. In addition, students may post full or partial solutions, pose questions, and participate in extended discussions. Experienced faculty and practitioners from across the country contribute problems, serve as reviewers of posted solutions, and facilitate and moderate the online discussions.